CLTNET Online Environment

This five-year project builds a national network with the supporting tools and mechanisms needed to share knowledge, resources and to disseminate findings and expertise to the STEM teacher education community at large. The network provides information on the training, professional development and job opportunities for teacher education researchers and practitioners. This project establishes the protocols for disseminating current research that informs both teaching practice and the ongoing preparation of teachers. It links the CLT projects as well as provides a public presence for the program and a gateway to current research.

This project will add a layer of communication and public access to the CLT program. In addition, it solves some logistics and communications problems for the Centers themselves. It is designed in direct response to the needs survey of the CLT PI's; consequently, it provides them with an internal collaboration tool as well as an outreach vehicle for their work. At a programmatic level, CLT-Net provides a public window into the research that is underway and a tool for monitoring the investment in the program. The project will significantly improve the visibility and accessibility of the CLTs to those who use the research and employ the researchers they produce.